Organization of the Integrated Photonics Research Topical Meeting

This award for support of the Integrated Photonics Research Meeting will cover all aspects of research in integrated and/or guided-wave photonics. Topics covered in this area are Photonics Devices and Circuits; Nonlinear Guided-Wave Phenomena Modeling, Numerical Simulation, and Theory; and Physics, Materials, Technology, and Characterization. Each of these areas will be represented by a subcommittee of the program committee.